Research Initation: Adaptive Image Restoration and Recovery

The objectives of this project are to develop new algorithms for regularized space-variant deconvolution based on adaptive Kalman or ARMA (autoregressive moving average) filtering with applications in image restoration; to restore blurred images to extract information that would otherwise be unreadable; to identify blur transfer function from the degraded image itself and develop theoretical measures for blur identifiability; to suppress ringing artifacts that are due to space-invariant deconvolution. Image restoration is an ill-posed problem. Small perturbations of the observed image due to noise may yield large variations in the solution. Regularization of ill-posed problems can be achieved by incorporating statistical or deterministic a priori information into the solution. Shift-invariant regularization causes ringing artifacts; however, adaptive deconvolution suppresses ringing artifacts. Adaptive deconvolution is also able to restore spatially variant degradations. Image degradations usually vary by spatial coordinates and the source of these degradations is generally unknown. Hence, it is of interest to develop adaptive restoration techniques that can identify the signal and degradation model parameters on-line based on a local observation window. ARMA filtering, adaptive Kalman filtering with on-line parameter identification for regularized restoration of space-variant blurs, and adaptive regularization in a deterministic framework using the theory of convex projections (POCUS) are being investigated. The blur identification problem is one of identifying a symmetric, noncausal, nonminimum-phase, finite- extent impulse response for a linear system. Practical statistical methods to solve the blur identification problem based on spatial-domain ARMA model identification are being explored.